Fourier Transform Infrared for Chemistry

Fourier transform infrared spectroscopy is being introduced into the undergraduate curriculum. The use of an FTIR affects more laboratory courses than any other instrument that could be purchased by the department. In general chemistry the students are being introduced to the matching of an unknown spectra with a library. The characteristics and theory of FTIR are being studied in Instrumental Analysis. The quantitative and qualitative aspects are being used in organic, qualitative organic, polymer chemistry and in the undergraduate research program. Physical characteristics of chemical bonding and kinetics are being studied in physical chemistry and inorganic synthesis. The students are gaining a deeper appreciation and broader perspective of modern high technology which should increase their enthusiasm for chemistry. The technique which is widely used in industry and graduate research is allowing the students to have hands on experience using a computer controlled data manipulation device that is one thousand times faster than a dispersive infrared instrument. The grantee is matching the award from non-Federal sources.